NER: Spin Injector for Nanomagnetics and Spintronics Research

Abstract
This proposal was received in response to the Nanoscale Science and
Engineering Initiative, Program Solicitation NSF 01-157, in the NER
category. The proposal focuses on the development and characterization of
one unique class of metal-semiconductor heterostructures, which potentially
will result in production of a spin injector. Specifically, problems exist
in characterizing the nature of spin transport and scattering through the
interfaces of nanomagnetic and spintronic materials. As one considers
various potential hybrid structures, the need to be able to probe the
spin-dependent transmission properties of the interfaces between
semiconductors, ferromagnets, non-magnetic metals, and insulators becomes
critical.

Our objective is to fabricate and characterize a structure that will allow
one to interrogate the spin-dependent transmission properties by providing
an easily-controlled source of spin-polarized electrons. The device uses
circularly-polarized light to excite spin-dependent carriers within GaAs,
and incorporates a Ag thin-film quantum-well spin-filter to energy select
the hot electrons. This source of energy-selectable spin-polarized
electrons then forms the substrate for the subsequent growth of magnetic
structures. We will characterize the degree of spin-polarization by using
the empty minority states of a Co film grown on this spin injector as an
analyzer. While changing the doping of the GaAs provides a coarse energy
selection, judicious choice of the Ag thickness provides a fine-tuning of
the energy of these electrons via the energetics of the relevant Ag
quantum-well state.

Our plan to demonstrate, refine, and calibrate this device involves the
growth of quantum-stabilized Ag films on cleaved GaAs(110) and on GaAs(100)
wafers. We have already shown that these Ag films exhibit quantum-well
states and they will be used to further energy-filter the spin-polarized
electrons. To analyze the spin-polarization of these electrons, we will
epitaxially grow Co on the Ag/GaAs structure and calibrate the
spin-dependent transport into the empty minority-state bands, both as a
function of the polarization of the electrons from GaAs as well as the
magnetization of the Co. Future extensions include the incorporation of an
Al2O3 insulating barrier to test the operation in practical spin-tunneling
devices. Throughout the research plan, emphasis will be placed on
correlating atomic/morphological and electronic properties of nanophase
heterostructures with ensuing spin-dependent conductance.

This project impacts the field of magnetics in several ways. This
structure provides an inexpensive tool to interrogate spin transport
properties and provides an alternative to spin-polarized photoemission and
inverse photoemission. Once calibrated, it can be used to quickly evaluate
the spin-dependent transport properties of advanced materials such as
half-metallic thin-films. Furthermore, it can be used in a direct manner
to provide valuable data on the spin-dependent scattering processes that
occur at the interfaces of spintronic structures.